The BrainstormHPCD-2 Workshop

BrainstormHPCD-2 is the second of two workshops that are part of a community-driven effort to gather comprehensive information about the needs of the National Science Foundation-sponsored science and engineering research community for advanced capacity through capability computing, including data-intensive and compute-intensive resources. The workshop focuses on the research community needs at the high end of the spectrum and attempts to articulate the value, contributions and impacts of at-scale computing for the advancement of science, engineering, and other research. In addition to direct input to NSF/ACI, the workshop will provide valuable input to the National Research Council Committee on Future Directions for NSF Advanced Computing Infrastructure to Support U.S. Science in 2017-2020. Along with application leaders confronting diverse computing and analysis challenges, attendees include members from industry and government with expertise in algorithms, computer system architecture, and applications.